Development of an Instrument-Based Laboratory for Undergraduate Chemistry Courses

The Department of Natural and Applied Sciences is purchasing spectrophotometers and chromatography equipment for use in both lower and upper division courses. The department is establishing a curriculum with an environmental theme throughout the four year program. The instruments are being used in the quantitative measurement of particulate matter, volatile organics, and trace metals in the biosphere.